SGER: Lake Washington Watershed

This research is designed to take advantage of a suite of low probability and ephemeral physical environmental conditions that should allow the significant extension of data sets having to do with the effects of an urbanizing landscape on a lake ecosystem. Historical data sets are available for comparison of lake behavior attributable to this cold season's peculiar set of conditions. It is expected that significant changes will be observed in the patterns of streamborne nutrient inputs to the lake. Even more interesting, however, is the possibility of using the data for the evaluation of "bottom up" versus "top down" assertions that currently abound in the aquatic ecology community. Studies of the type represented by this project provide the foundation for better understanding and, therefore, the better management of aquatic resources. It can be expected that the work will be important not only within the sphere of fundamental aquatic science but also to water resource managers involved in decisions regarding water quality and fisheries.